Abnormal Gastrulation in Drosophila

The Drosophila abnormal gastrulation (noga) gene was identified in a genetic screen for mutations mapping in the 71C-F interval of chromosome 3. Six alleles of this embryonic lethal locus were recovered. In noga mutant embryos, a defective gastrulation is observed in that the ventral furrow fails to form properly, and the cephalic furrow and posterior midgut invagination occur abnormally. The underlying reasons for this defective gastrulation phenotype are currently unknown; a mutation in noga may result in an alteration of cell fate along the dorsoventral axis or a mutation in noga may cause abnormalities in the cell shape changes, cell movements, or cell-cell interactions necessary for gastrulation. The specific goals of the research on the noga gene are the following: 1) further characterize the noga mutant phenotype; 2) isolation and molecular characterization the noga gene; 3) a study of noga gene expression during normal embryogenesis; and 4) an investigation of the function of the noga gene in gastrulation. Overall, the further phenotypic and molecular analysis of this interesting gene should provide important information on dorsoventral patterning and/or gastrulation in the Drosophila embryo.